University of Delaware RV HUGH R. SHARP - SSSE FY 2025

The University of Delaware (UDel) requests funds for shipboard scientific support equipment that is needed to carry out NSF-supported scientific research on board the R/V Hugh R. Sharp, a research vessel operating as part of the U.S. Academic Research Fleet (ARF). The specific equipment request is an upgrade to the Sharp’s dynamic positioning system, a computerized navigation control system which allows the ship to maintain a precise position and orientation at sea during oceanographic sampling. This upgrade will help ensure the vessel maintains its high-level capabilities to support NSF-funded research.

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 23-525). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance, and operation of shared-use instrumentation allows NSF-funded researchers from any US university or other organization access to well-maintained, high-quality, calibrated instruments for their research. It ensures the collection of high-quality oceanographic data in support of science, reduces the cost of that research, and expands the base of potential researchers.